AF: Small: A-Hypergeometric Solutions of Linear Differential Equations

Many scientific laws are captured as differential equations --
formulas that relates a quantity (such as position) to its derivatives
(velocity and acceleration). Differential equations are common in
science, mathematics and engineering. They can be solved numerically,
but may also have a closed-form solution -- an exact solution written
in terms of familiar functions.

Except for small equations, closed-form solutions were thought to be
rare. Algorithms for second-order equations, which were developed by
the PI and his students, have demonstrated that closed form solutions
of linear differential equations with polynomial coefficients
are actually common; solutions can often be written in terms of
Gauss's hypergeometric function, a familiar function in differential
equations.

This project aims to find out if closed form solutions are also common
for higher order equations. The PI will work with two graduate
students to develop algorithms to search for solutions in terms of
A-hypergeometric functions, which were introduced by Gel'fand,
Kapranov and Zelevinski.

There is a wide variety of A-hypergeometric functions, which
correspond to polytopes. A-hypergeometric functions can be
multivariate, so several tools that currently only exist for
univariate equations need to be generalized. A key motivating
question is if convergent integer-series solutions can always be
written in terms of A-hypergeometric functions. If true, then
A-hypergeometric solutions would be common in areas of mathematics and
science that involve combinatorial structures or integrals, such as the Ising model
or Feynman diagrams in physics. This question leads to several others
on A-hypergeometric functions, some of which can be settled by the
algorithms to be developed in this project.